SGER: Polar Education and Outreach Leveraging Windows to the Universe for the International Polar Year

This activity will augment the development of currently planned polar topics to the Windows to the Universe educational website. The focus of the project is to provide a more comprehensive content base for the website with an enhanced focus of the International Polar Year. Adding web-based interactive activities will be a part of these enhancements. Furthermore, the web site will be translated into Spanish to broaden its audience.